Toward a Renewed and Invigorated Biology Program

About twenty investigative lessons are being developed for display on a Videoshow unit from General Parametrics Corporation, which will help build a model curriculum for lower division, introductory biology courses. Emphasis for the lecture packages will be placed on visually clear examples of experimental sequences, flow charts, and data that add dimension to a student's understanding of scientific processes. Analytical skills will be enhanced by numerous examples of experimental data presented first in raw form then displayed in a graphic or statistical manner that changes numbers into information. The strong visual support for these difficult concepts will help an under represented general student population understand scientific methodology. Unique features of Videoshow that contribute to the overall quality of the lecture products are its programmability, adaptability, ease of use, random access features, and quality of images. The addition of slide, print, and transparency makers to the system will increase versatility. Changes in student achievement will be evaluated and compared before and after implementation of the new program with results being reported both locally and nationally.